High-Tech., Project-Based Beginning Algebra and Statistics Course for Two-Year Colleges

Beginning Algebra and Statistics courses at Spartenburg Technical College are being transformed from lecture-based courses to project-based courses in which students learn content as they progress through a series of projects. Goals include: (1) technology literate graduates; (2) graduates with better affective skills, including problem-solving and team-building skills; (3) graduates with a clear conception of mathematics as it relates to the real world; and (4) a model for mathematics education at the two-year college level.

This project is adapting, extending, and implementing materials and practices developed by a number of projects including "Interactive Statistics" by Martha Aliaga and Brenda Gunderson; "Practical Statistics by Example Using Microsoft Excel" by Terry Sincich, David Levine,and David Stephen; "Data-Driven Statistics Courses in an Interactive Teaching Laboratory (DUE-9751571), Project Chance; and others. The current project will also develop some new materials.